Collaborative Proposal: Cellular and Molecular Dissection of "Organizing Activity" during Development in the Spiralia

During normal development, signals between cells in the early embryo can have
substantial influence on how the body develops, such as how the eyes and brain
become localized in the head or how the spinal cord becomes localized on the back and
not the belly. These early events have a tremendous effect on the organization of the
tissues within the body and are critical for normal development of all animals. This
project will determine how changes in early developmental mechanisms can lead to
formation of new body parts. The three study animals are segmented worms, and offer
the advantage that their embryos possess only 16 to 64 cells when these critical early
signaling events occur. This contrasts with the approximately 1000 cells at a comparable
stage in the vertebrate embryo. Thus, development will be studied on the single cell level,
and similar cells can be compared across distantly related animals. The specific goals of
this study are to identify the signaling cell and the molecules responsible for instructing
surrounding cells to correctly position and generate body parts. The proposed study will
provide strong STEM training opportunities by integrating scientific training with research
for college students, graduate students and postdoctoral scholars. In addition, there will
be ongoing community outreach activities, including hands-on activities with several
different K-12 age groups in the local school districts to teach about animal biodiversity
of the oceans, and general talks to adults in the local community.

This project seeks to understand how developmental changes lead to a range of body
plans, and represents a unique opportunity to gain insight into the evolution of
developmental programs. A group of animals known as the Spiralia exhibit enormous
body plan diversity, yet many phyla in this clade share a highly stereotypic embryological
program called spiralian development. This conservation allows studies of the evolution
of homologous embryonic cell lineages with single cell resolution across diverse taxa.
Specifically, the molecular signaling repertoire of a single cell will be determined, and the
evolutionary plasticity of its organizing activity will be assessed by comparing distantly
related species. Spiralian development will be investigated experimentally in the
annelids Capitella teleta, Platynereis dumerilii and Chaetopterus sp. The phylogenetic
position and embryonic studies of the three species will be used to reconstruct the
ancestral cellular and molecular characteristics of annelid organizing activity. Specific
goals of the project utilizing the three annelids are: 1) deletion of single cells in early
stage embryos to identify cell(s) possessing 'organizing activity', 2) identification of
molecular signals that mediate organizing activity, 3) determination of the function of
organizing signals by knockdown and mis-expression studies. The proposed study will
provide strong training opportunities by integrating scientific training with research, and
continue to develop Capitella and Platynereis as annelid models for Evo-Devo studies.
There will be ongoing community outreach activities, including hands-on activities with
several different age groups in the local school districts that highlight biodiversity in the
oceans, and general talks to adult audiences in the local community.